An Institute in Environmental Science for Young Puerto RicanScholars

The InterAmerican University of Puerto Rico, San German campus, will sponsor a six-week, commuter Young Scholars project in the Environmental Sciences for 15 students entering grades 10,11. Participants will engage in a one-week lecture program and a five-week environmental study of the Guanajibo River during the summer session. The follow-up activities will take place during the Fall semester of the academic year.